ROW: The Role of Protein Kinase C Activity in Neuronal Plasticity: Long Term Potentiation and Kindling Models

This research planning grant will allow Dr. Burdette to conduct preliminary research on the involvement of protein Kinase C in long term potentiation and kindling in the rat hippocampus. This is an important topic and this small award will allow her to develop the basis for an expanded independent research program.